Strategies: Bridging Math Literacy and Digital Media Creation: Students as Learners, Teachers, and Leaders of STEM Content

The project leaders guided high school students through a mathematics-based, programming experience that prepared the high school students to teach mathematics and programming to middle school students. Using a "drag and drop" programming language, the participants explored mathematical concepts. Products of the project include two modules, the first using video games based on existing mathematics games and the second using simulations to explore social issues. The goals of the project are (1) to develop computational literacy as well as mathematical literacy and (2) encourage students to pursue STEM careers.